WORKSHOP: Complex Adaptive Systems: Resilience, Robustness, and Evolvability

This award supports participant travel, primarily graduate student travel, to the second AAAI Fall Symposium on Complex Adaptive Systems (CAS). The objectives for this symposium are to continue building the nascent community of complex adaptive systems researchers, and to advance understanding basic characteristics of CAS, such as resilience, robustness, and evolvability. The Symposium will address these phenomena in the context of non-trivial, real-life CAS applications, with a focus on human/social and ecological systems. Study of applications is guided by general domain-independent questions, such as:

* What are the best models for studying complex systems?
* How does the structure of a complex system constrain its emergent behaviors?
* What are the consequences of evolution and adaptation in complex systems?
* How do we calibrate complex systems and predict their behavior?

Furthermore, communicating the properties of CAS across domains allows researchers to gain insight from fields that they normally may not encounter, to span natural, physical, social, and virtual/artificial systems.